CISE Research Instrumentation: High Data Rate Network Research

This award provides funds to build an FDDI LAN using existing fiber cable, with network analyzer and logic analyzer interface. This local area network will support research projects in queuing and control theoretic algorithms for rate based flow control, high- performance network interoperability modelling, impact of application-network interaction on high data rate network performance, multimedia information on a distributed system, and high performance FDDI networks for VSAT internetworking. Equipment will be purchased to assemble a campus-wide Fiber Distributed-Data Interface (FDDI) network to support experimental communications research as well as to provide a testbed for distributed multimedia. Research projects supported include the development and implementation of a new rate control algorithm for local area networks (LAN), interoperability modeling, optimal organization and performance of distributed systems based on high data rate LAN's, and network-aided construction and access to digital multimedia information.